Facility for Laser Spectroscopy Upgrade

Lasers provide the chemist with the means of carrying out high resolution, high sensitivity experiments related to, for example, solution chemistry, spectroscopy, molecular dynamics, and biophysical chemistry. If laser instrumentation is configured as a central facility, the research of a group of first-rate investigators can be enhanced. The Department of Chemistry at Cornell University will use this award co-recommended by the Chemical Instrumentation Program, the Biological Instrumentation Program, and the Atmospheric Chemistry Program to aid in the acquisition of a series of lasers. The lasers will provide a high-resolution continuous wave (cw) system, a nanosecond facility, and a picosecond facility. The general areas of chemical and biophysical research that will be enhanced by the acquisition and shared use of the instrumentation include: 1) Study of reactions in solutions and the detailed interactions of a solute with a solvent 2) Study of the relationships between Raman scattering, resonance fluorescence, and normal absorption spectra. 3) Study of molecular dynamics in gas-phase interactions 4) Biophysical studies using time-correlated single photon counting